Southern Biomedical Engineering Conference (28th) on May 4-6, 2012 at the University of Texas M.D. Anderson Cancer Center

1239722
Mathur

Intellectual Merits. This proposal to the National Science Foundation (NSF) requests partial support of the 28th Southern Biomedical Engineering Conference (SBEC), to be held May 4-May 6, 2012, at The University of Texas M. D. Anderson Cancer Center and co-hosted by Rice University and Methodist Research Hospital Institute. Funds from the NSF will be used to provide partial support for student awards, keynote speakers, publicity and supplies, and conference publications.

The overall themes of this conference series is "Translational and Basic Science Research in Bioengineering and Medicine." The broad impact of this conference falls within the various areas of Biomedical Engineering such as Computational Modeling, Bioinformatics, Imaging, Cell and Tissue Engineering, Nanotechnology, Clinical Applications of Technology, and Medical Devices. Since this meeting is being held at MD Anderson this year it will particularly highlight researchers who are not only conducting basic science research but also translational research. The field of biomedical engineering is rapidly evolving. Meetings and conferences provide the means for individuals to promote and disseminate advances they have made, subject to peer and professional critique. These gatherings are most valuable venues for discussing new directions, ideas and approaches for research and education. They also aid both in reinforcing contacts and collaborations and establishing new ones. The Southern Biomedical Engineering Conference draws heavily from institutions and organizations in the South, Southwest, and Southeast regions of the US; but from the beginning, many from outside of the region and even other countries have actively participated in this regional conference. In the past conferences many distinguished scientists, biomedical engineers, and physicians have participated, which included even a Nobel Laureate.

Board Impact. The abstracts will be disseminated by publishing in the Program Abstract Book. The Proceedings from the conference will be published in a CD format and provided to the conference attendees. It is planned to encourage a selected set of high-impact publications for subsequent publication in a book or journal format. The SBEC program committee will identify these authors through the abstract review and presentation process. Invitations and announcement posters has been mailed to the chairpersons of all bioengineering and biomedical engineering departments and programs located throughout the United States. Conference flyers have been mailed to all faculty and graduate students in appropriate programs at US institutions. Posters and flyers will also be mailed to members of appropriate technical Societies and other bioengineering mailing lists available to us. Announcements will be posted and distributed on the internet via e-mail and list serve groups and through linking the Southern Biomedical Engineering Conference homepage to other biomedical engineering sites such as Biomedical Engineering Society (BMES). The conference has been announced at the BMES website. Recognizing the importance of diversity is a priority and we plan to support students and faculty from diverse backgrounds by giving them an opportunity to present at the meeting with award support. The SBEC serves a special purpose by emphasizing student participation. Unlike national meetings, the participation of students (undergraduate, graduate, and professional) is strongly encouraged. Work presented by student authors, while their mentors observe, helps them develop public speaking skills and establish self-confidence in their presentations. Established investigators will present papers in the same sessions with the students, thus encouraging a high level of professionalism as a standard for the students and allowing students to hear well-known authorities in the field as well. In keeping with the emphasis on student participation, the SBEC presents best paper awards to undergraduate, graduate, and professional students based on both their written papers and presentations at the conference. At large national and international meetings, many students are either overwhelmed or lost in the crowd. The Southern Biomedical Engineering Conference strives to create a more relaxed and more personal environment. This is beneficial to all attendees but particularly important for students and young investigators. Indeed, the conference's emphasis on students encourages them to be actively involved, not just by attending, but by participating and contributing to the conference through their individual presentations. It is important to note that some of the organizers of recent SBEC conferences did their very first conference presentation at SBEC when they were doctoral students or young assistant professors. Despite being primarily a regional conference, attendees in the past have come from all over the US as well as foreign countries. The audience size of the Southern Biomedical Engineering Conference allows interactions between students and prominent biomedical engineers and researchers are both possible and likely. These interactions are key to the continued development and advancement of biomedical engineering.